Modules to Reform Instruction in Nonmajors Biology

9354628 Benford This pilot project develops a module for use in general biology for majors courses. The neuroscience based module-Mind, Brain, Behavior-includes hands-on and readings-based activities on such topics as The Jogger's High, Modification of Brine Shrimp Behavior, Mapping the Brain, Neurotransmitters and Disorders, Drugs and Brain Synapses, Ethics of Using Tissues from Aborted Fetuses, Legalization of Psychotropic Drugs. In the hands-on activities, students collect, graph and analyze data; propose further hypotheses; and search the literature. The scientific approach to solving questions is emphasized. Readings based activities focus on developing skill in critical reading. Working individually and as teams, students identify hypotheses, analyze supporting evidence, convert words into visual images and models, propose alternate hypotheses/conclusions, and debate ethical, economic or political implications. The module is self-standing and includes an Instructor's Manual, a Student Study Guide, a Readings Set, and examinations to assess existing knowledge and misconceptions in pre-test/post-test format. ***y